Math Smart

Community Television of Southern California (KCET/Los Angeles) proposes to create a national television series supported by outreach activities designed to motivate parents to participate in and support children's learning and enjoyment of mathematics. This proposal requests National Science Foundation funding of $1 million towards a total twenty-two month project costing approximately $1.7 million. The proposed television series Math Smart (working title) will include 5 lively half-hour programs designed specifically to aid parents and other adult family members of children in first through third grade. The series will be offered for broadcast nationally on the Public Broadcasting System (PBS). Videocassettes of the series and an accompanying Resource Guide will also be made available for home use. National promotional and outreach activities will complement the PBS broadcast, including presentations of national educational conferences and one-day orientation workshops for parents and teachers at selected sites. Over the course of the project, process and outcome evaluation will be conducted to ensure the effectiveness of the MATH SMART materials and activities. The primary goal of the MATH SMART Project is to empower parents to participate in and reinforce the learning of mathematics and a vital par t of everyday life. It is from parents that children develop the foundation for their educational success. Unfortunately, many parents do not possess the mathematical skills or confidence needed to help their children. By providing examples of hands-on learning activities which families can do together at home, MATh SMART offers parents the tools to help excite young children about mathematics. While special emphasis will be given to encouraging minority participation, this project seeks to help all parents and other primary caretakers prepare children for the 21st century.